Mycorrhizal Ecology of Plant Colonization of Glacier Forefronts

The importance of relative dependency of plants on root- symbiotic (mycorrhizal) fungi may be critical to plant succession on new soils, but this area of ecology has received little attention. Glaciers of the North Cascade Mountains of Washington suit this purpose. In receding, they deposit rubble initially devoid of symbiotic fungi, which increase in time of exposure with distance from the glacier terminus. Plants that colonize these glacier forefronts over time will be compared with the same species in adjacent, undisturbed communities for mycorrhiza formation. The three major groups are plants that (1) survive without the symbiotic fungi, (2) depend on mycorrhizal fungi dispersed by air, and (3) depend on mycorrhizal fungi dispersed with moving soil. Plants in group 1 are predicted to be first colonizers, followed in turn by groups 2 and 3. Field sampling and greenhouse and growth chamber inoculation experiments will test the hypothesis. If true, it will explain why only a few of the many seed-producing plants adjacent to glaciers are initial colonizers. This contribution to ecological theory has many applications in interpreting successional phenomena and in rehabilitating disturbed or degraded ecosystems.